Adaptation, Phylogenetic Inertia, and Trait Independence

SES 99-06997 - Steven Orzack & Elliott Sober (Fresh Pond Research Institute)
"Adaptation, Phylogenetic Inertia, and Trait Independence"

In recent years, a number of biologists have proposed methods for using comparative (cross-species) data to test adaptive hypotheses. The most widely used of these methods is Felsenstein's (1985) method of independent contrasts. One important objective of these methods is to control for the possibility of phylogenetic inertia -- to take account of the fact that closely related species may have similar traits, not because these traits are adaptive, but simply because they were inherited from a common ancestor (Harvey and Pagel 1992). In this project, the Principal Investigators will evaluate these methods; they also will construct, justify, and apply a new method (which we call the method of controlled comparisons) that (they argue) avoids the defects found in existing methods. This task will require careful conceptual analyses of what phylogenetic inertia actually means and of how inertial hypotheses are related to optimality models. One analytic tool that they will use is the work by philosophers on probabilistic explications of the concept of cause (e.g., Eells 1991). This project is part of the larger program of showing how adaptationism can be tested; it supplements the analysis in Orzack and Sober (1994a,b) of how optimality models should be tested by using within-species data.